Collaborative Research: A Solar and Wind Innovation and Technology Collaborative for Hawaii (SWITCH)

This Track 2 ATE project aims to serve the national interest by cultivating the next generation workforce to lead Hawaii’s transition to 100% renewable energy by 2045. A central challenge in renewable energy generation is it often confronts other basic needs such as food, water, and culture, as its distributed nature demands a lot of space. As such, large-scale deployments of renewable energy generators in our country would be unthinkable without establishing wide social acceptance. Studies have suggested that greater public participation in planning and designing of renewable energy solutions can increase their transparency and gain more public trust and community support. However, the current paradigm of technical education in the field of renewable energy lacks essential elements for teaching students how to address public concerns with technological solutions and then communicate the engineering results to stakeholders. This project will supplement these elements to existing courses in community colleges and use the social environments of public schools as testbeds for students to learn and practice those “soft skills.”

In partnership with five high schools in Hawaii, Kapiolani Community College (KCC) and the Institute for Future Intelligence (IFI) will develop innovative educational programs that engage community college and high school students to learn the knowledge and skills needed to take on the renewable energy challenge. These programs will use students’ own homes, schools, and communities as the application scenarios for designing hypothetical solar and wind energy solutions. Students will learn how to meet the diverse needs of their families and communities while minimizing adverse effects on local ecosystems, cultures, and economies. To consolidate the pathway of career and technical education from the secondary level to the tertiary level, the project will designate KCC students who have successfully completed these programs as teaching assistants to teachers and design tutors to students in collaborating high schools to help them implement customized versions of the programs. The project will be empowered by Aladdin, an open-source, Web-based computer-aided design tool developed by IFI as a citizen science platform that supports public participation in renewable energy engineering and planning. Aladdin allows anyone to design their own renewable energy solutions for their communities, share the proposed solutions via social networks, and draw public interest in crowdfunding their construction. KCC will run annual professional development workshops to introduce the curricular and technological innovations of this project to secondary teachers in Hawaii. Interested teachers will then partner with KCC to implement these innovations in their schools. This project will be overseen by an Advisory Board consisting of experts in the fields of renewable energy, technical education, and policy making. This project is funded by the Advanced Technological Education program that focuses on the education of technicians for the advanced-technology fields that drive the nation’s economy.